Pilot Program for Disseminating Instructional Materials on Ethical Issues in Science

This award provides partial support for a pilot program to develop and disseminate instructional materials on ethical issues in science via the mechanism of Sigma Xi sponsored workshops on university campuses. Sigma Xi, The Scientific Research Society, has 518 chapters, most of which are located at US colleges and universities. This support will allow a small, high-level workshop for planning and issue-focusing to occur, to be followed by a larger-scale pilot dissemination workshop. Both will focus on ethical issues in science and technology, ranging from issues of research ethics to issues of the social implications of science, engineering, and technology. Materials that can be used as foundations for coursework will be made available to other academic institutions. Sigma Xi envisages further dissemination workshops, as future funds may allow.